Using Artificial Intelligence to Accelerate Catalyst Discovery in Ethylene Copolymerization and Functionalization Reactions

In this project, Professor Paula Diaconescu of the Department of Chemistry and Biochemistry at University of California-Los Angeles is developing and applying artificial intelligence to enhance the efficiency and utilization of resources during catalyst development. By providing a predictive model that screens potential catalysts with a measurable confidence factor before running experiments, the project seeks to decrease significantly the need for exhaustive, trial-and-error experimental work. This reduction in synthetic cost and time accelerates innovation and promotes sustainable chemical research practices. A central goal of the project is to foster the development of a highly skilled scientific workforce. Students from diverse academic backgrounds will be exposed to interdisciplinary collaborations through a constant exchange of ideas, core chemistry principles, and machine learning, thus providing them with cutting-edge, indispensable skills for virtually any employment sector in chemistry and beyond.

This project aims to revolutionize catalyst discovery, focusing on ethylene copolymerization (with other monomers) and ethylene-CO2 coupling reactions. While artificial intelligence is rapidly emerging in polymerization catalysis, its potential has been limited. Traditional machine learning models struggle to make accurate predictions because there simply are not enough high-quality examples available. Furthermore, the scientific literature currently lacks a rigorous, systematic method for selecting the right descriptors needed to predict good candidates from a small dataset. Network science approaches can provide such a model by mapping out structure-property relationships for organometallic compounds, and the team envisions that successfully applying this technique will lead to a recommendation algorithm that helps chemists predict effective catalysts with a measurable confidence factor before they run any experiments. After generating a recommendation algorithm for catalyst design, they will synthesize the corresponding metal complexes and optimize their polymerization performance with Bayesian methods. This approach could lead to a paradigm shift in catalyst discovery, streamlining the process even while acknowledging the ongoing importance of new catalyst innovation.